Electromagnetic Nuclear Physics at Intermediate Energies

A program of experimental electromagnetic nuclear physics using intermediate energy electrons and photons will be carried out using the MIT/Bates linac, the Saskatchewan Accelerators Laboratory (SAL) cw linac/pulse stretcher ring, and the BNL/LEGS monoenergetic and polarized high energy photon beam. The major experiments include: (1) photopion reaction work aimed at studying the properties of deltas in nuclei ıMIT and SAL!, (2) electron scattering from correlated pairs in helium-3 ıMIT!, and (3) photodisintegration of helium-3 studying 2-body absorption mechanisms ıBNL/LEGS!. Design and development of detectors for proposed experiments at CEBAF, SLAC/PEGASUS, and the MIT/Bates upgrade project will carried out.